Polarization Transfer and the 3He(d,p)4He Reaction

9507202 Fletcher To study the reaction mechanism which governs the 3he(d,p)4He reaction at very low energies, we will design, construct, and test a proton polarimeter which we will use to measure relevant polarization transfer coefficients. The device will be designed and built at SUNY-Geneseo, and tested using unpolarized beams from the Geneseo 2-MV Van de Graaff accelerator. The polarization measurements will be made using the atomic beam polarized ion source at Triangle Universities Nuclear Lab, in collaboration with researchers from the University of North Carolina-Chapel Hill. Undergraduates students from Geneseo will be involved in all phases of the project, from polarimeter design to analysis of the data. The result of this project will be the first measurements of polarization transfer in the 3He(d,p)4He reaction near the 3/2+ resonance. These data will be useful in understanding the 3He(d,p)4He reaction and in evaluation the importance of different reaction mechanisms below the resonance energy. ***